Three Dimensional Structure and Flux of Salt Fingers in an Unbounded Gradient Region

9726584 Stern The project is to conduct finite-amplitude numerical calculations of salt fingers in an unbounded domain with uniform vertical temperature and salinity gradient. The research will focus initially on an asymptotic state in the vicinity of absolute thermohaline instability. It is intended to obtain predictions for the rms T-S fluctuations, which are testable in future sugar-salt experiments. Some insight into the ergodic question might be obtained from the simpler two-dimensional small epsilon case.